Wave Propagation Methods for Astrophysical Flows

This research is focused on developing accurate and efficient numerical
methods for the simulation of astrophysical flows. This project will build
on a class of high-resolution shock-capturing methods that have in the
last few years gained popularity in astrophysics. Several numerical
challenges will be investigated including computing high Lorentz factor
flows; maintaining divergence-free magnetic fields as dictated by Maxwell's
equations; incorporating space-time curvature for general relativistic
flows; including radiative cooling physics; and accurately simulating
multi-component flows. Adaptive mesh refinement techniques will be
incorporated into the simulations in order to resolve regions of the
flow where the solution is rapidly varying, and conversely, to use
less resolution in regions where the solution remains nearly constant.
Special attention will be given to two application problems: the special
relativistic problem of the interaction of pulsar wind nebulae with
supernovae remnants and the general relativistic problem of accretion
onto a rotating black hole.

Astrophysics, much like weather prediction and climatology, is a field of
science in which observations are possible, but direct experimentation is
not. Therefore, direct experiments are replaced by computer simulations. In
order to carry out these simulations, sophisticated tools from computational
mathematics are required to approximately solve the nonlinear system of
equations that model astrophysical flows. Examples of such flows include the
formation of pulsar wind nebulae and the accretion of matter into a black hole.
A feature of these flows, and consequently the equations that model them, is
that they can lead to complicated solutions with sharp discontinuities. Over
the past few decades, an important class of computer methods has been
developed to accurately and efficiently approximate such solutions. More
recently these methods have been applied to astrophysical fluid dynamics. This
research will focus on developing and implementing generalizations of these
methods and also on the application of these methods to specific astrophysical
problems. The P.I. is actively involved in collaborations between researchers
in both the Mathematics and Astronomy Departments at the University of Michigan.